Graduate Engineering Education To Serve the Aerospace Industry in Urban Los Angeles and the Antelope Valley

Engineering (59)

This scholarship program supports graduate students pursuing a master's of science degree in Electrical, Computer, or Mechanical Engineering. Highly trained, graduate-level engineers will be supplied to the aerospace industry to perpetuate a graduate student pipeline that supports the mission of the College of Engineering, Computer Science, and Technology and the goals of the AERO Institute. Academically talented, financially needy, students are identified and prepared in existing undergraduate programs while they participate in undergraduate collaborative research programs that are ongoing with AERO Institute, NASA Dryden Flight Research Center, and other aerospace industries. Students selected for this program complete their MS level degrees with a research focus in five specific areas: 1) Hypersonic technology; 2) Nanotechnology; 3) UAV systems; 4) Embedded computer systems; and 5) Machine vision technology. The institution is a designated Hispanic Serving Institution located in one of the most ethnically diverse regions of the country. Opportunities exist for the students to disseminate their research findings at regional and national conferences.